Conference: Frontiers of Electronic Commerce

IRI-9521672 Whinston, Andrew University of Texas-Austin $14,850 - 12 mos Conference: Frontiers of Electronic Commerce The conference is aimed at pushing and provoking Electronic Commerce research and practice to "go where no firm has ever ventured before. " Electronic commerce will render obsolete much of the accumulated research in business. Instead of merely transforming the way commerce is done today from a non-electronic world to an electronic platform, the new way of commerce will create and demand radical changes in the process, product and promotion to better exploit the digital platform. However, this emerging electronic market place is an unknown and needs to be understood. The goal is to use emerging technology to create a business environment or infrastructure that will ensure efficient electronic markets. What does it take in terms of new organization structures like the network structures facilitated by smart and wireless messaging; new electronic institutions such as brokerages staffed by electronic brokers or agent; new business processes better suited for mass customization, global sourcing and logistic; new financial payment mechanisms and mercantile protocols? To achieve exploration and exploitation of new frontiers, we need to integrate business concerns with the changing technology. The conference aims to provide this integration by bringing together leading business researchers who specialize in the various facets of electronic markets, namely economics, finance, marketing production and operations management, and technology experts in the industry who are creating the Electronic Commerce infrastructure. In addition, experts who specialize in the World Wide Web browsers, electronic cash, encryption, software agents, MIME-based messaging and EDI and Structured documents will be invited. The outcome of conference will be a better understanding of the shape, structure, and operation of business in the coming millennium.